RUI: Acquisition of DNA Microarray Technology for Biological Research

A grant has been awarded to the University of the Pacific (UOP) under the direction of Dr. Craig Vierra for the acquisition of a DNA microarray spotter, and a microarray scanner with software for data collection and analysis. Projects that will utilize this instrumentation include studies of genes regulated by basic helix-loop-helix proteins; identification of genes involved in peroxisome biogenesis in the methylotrophic yeast Pichia pastoris; identification of protein factors involved in the Ah receptor signaling pathway; identification of novel silk genes in spiders; identification of genes involved in DNA repair in Drosophila melanogaster; and the involvement of transcription factors in Caenorhabditis elegans development. The acquisition of DNA microarray technology for biological research will provide state-of-the-art research technology at UOP and support a program dedicated to training undergraduates at the highest level. The acquisition of this equipment will substantially impact faculty research for many members located in the Biology and Chemistry Departments and School of Pharmacy, as well as provide invaluable training and experience for science graduate students and undergraduates at UOP and California State University, Stanislaus. The equipment will help create a pedagogical environment to enhance learning for undergraduates seeking advanced science degrees and vocations in biotechnology.